Collaborative Proposal: Advances in Aspect-Oriented Languages, Methods, and Tools

Abstract: Aspect-oriented programming (AOP) promotes new mechanisms and
methods to improve separation of concerns in software design. AOP is not
well understood in theory, and remains controversial among researchers and
practitioners. One issue is that it relies on implementation-dependent,
implicit side effects, contradicting traditional views on abstraction,
information hiding, and compositional reasoning. The PIs' goals are to
explicate fundamental mechanisms of AOP; assess and improve the impact of
AOP on decomposition and coupling; and improve our understanding of the
inherent complexity of, and potential for, compositional reasoning involving
AOP. The approach is to ground AOP in an underlying ontology of implicit
invocation and then to leverage knowledge in that domain to advance our
understanding of AOP. The intellectual significance of the proposed work is
in its potential to improve our understanding of AOP, including effects on
modularity and abstraction, and the complexity of specification and
verification. Broader impacts are anticipated to flow from regularized and
improved AOP mechanisms, e.g., for event abstraction. The project will also
support development and delivery of a senior-level undergraduate and early
graduate course on AOP.